Research Initiation: Integration of Utility Analysis and Rule Based Computer Aids to Design

The objective of this project is to develop and integrate a decision analysis tool based on with artificial intelligence methodology which will facilitate optimal design at the initial concept stage. A methodology is planned which facilitates the incorporation of multiattribute utility analysis, a decision analysis tool, into other computer aids for the design of complex, engineered systems at the most basic level. The goal is multiattribute utility analysis of materials selection decisions in complex structural systems. The approach is to divide the system into subsystems, each consisting of individual components delineated on the basis of functional performance requirements. Multiattribute utility functions are assessed for each subsystem, and used in the design of each subsystem. A method for combining these utility functions to provide one expression for the overall utility of the entire system is presented. The result will be a tool with which to evaluate completed alternative designs and quantify tradeoffs which provide direction to design modifications, and the development of more efficient design concepts.